Group Travel Award, Seventh World Clean Air Congress Sidney, Australia, August 25-29, 1986

This group travel award provides support for U.S. participation in the Seventh World Clean Air Congress in Sydney, Australia from August 25-29, 1986. Persons who will be supported by this Group Travel award will include the President and the Executive Vice-President of the Air Pollution Control Association, and the U.S. Program Chairman for the Seventh Congress.